ABR: Systematics of Bahamian Cerion, and on Allometry and Covariation in Rules of Form for Cerion and Other Gastropod Shells

Cerion shows more variety in the form of its shell than any other land snail in the world. Sizes of adults range from 5 to 70 mm in length, shapes from spheres to very narrow cylinders. If an understanding of how such variety is generated within a genetic program that varies little from species to species could be obtained, insight would be gained into an important evolutionary question about change in form (chimps and humans are also very little different genetically, but morphologically quite disparate). By measuring shells and establishing correlations of characters in growth, the principal investigator has shown how small changes in rates of growth yield major differences in adult form. This key allows one to make sense of the geographic and temporal distribution of form in Cerion on the Bahama Islands. In this project, the principal investigator will continue his series of monographs on Bahaman species, trying to explain differences in form through the study of correlations discussed above. Studies of growth patterns in Cerion and the adaptive (or nonadaptive) status of individual changes that define species and populations will also be continued.